Theory and Applications of Some Inverse Problems in PDE

The PI intends to continue his study of uniqueness and stability for certain
important inverse problems. The contemporary methods of the theory of
partial differential equations will be used. Those include Carleman type
estimates, the Fourier integral operators, potential theory, and general
functional analytic approach. An emphasis is on inverse problems with
local/partial boundary measurements, on increasing stability by isolating
ill-posedness in a simple linear transform, on recovery of non-linear
equations, and on interaction between inverse problems and optimal
control theory. Based on the theory the PI plans to develop efficient
numerical algorithms for the following important applied inverse
problems.
The applied focus of the project will be on
- the problem of electromagnetic detection of the active part of human
brain
- identifying a source of acoustical noise located on the surface of an
aircraft cabin from interior measurements
- finding constitutive laws for complicated non-linear physical systems,
including underground flows in porous media and chemical reactions
- reconstruction of the volatility coefficient of options trading from
current market data.
The second problem is of immediate importance in designing less noisy
cars and midsize aircraft. The fourth one is about prediction of the future
state of the very important financial area influencing the life of
contemporary society.